UJNR Soil-Structure Interaction Workshop

9807562 CELEBI During the design/analysis process for engineered structures, it has been assumed that the foundation of a structure is fixed to a rigid underlying medium. In the last four decades, however, it has been recognized that soil-structure interaction alters the response characteristics of a structural system. In important engineered structures, detailed numerical and closed-form-solution methods are applied to perform soil- structure analyses. To date, the earthquake strong-motion data from instrumented buildings are insufficient to confirm the validity of the soil- structure interaction analysis methods and procedures as applied to structures other than nuclear power plants. During the May 1997 meeting of the Panel on Wind and Seismic Effects of the United States Japan Natural Resources Development Program (UJNR) held in Tsukuba, Japan, it was decided to hold a workshop on Soil- Structure Interaction (SSI). The purpose of this action is to provide partial support for the organization this UJNR workshop, to be held in Menlo Park, California, September 1998. The workshop will bring together experts in the field from Japan and the United States to discuss various topics, including: (a) current methods of SSI used in design/analyses processes in both Japan and the United States, (b) recent researches that are being carried out, (c) experimental SSI research arrays and/or facilities developed and that are in the process of being developed and (d) searching for ways to cooperate on future SSI research. The benefits of the workshop will be to exchange detailed information and data on SSI and to provide avenues for the development of new cooperative research between Japanese and US researchers.